Experimental Foundations of Waves and Vibrations: A Summer Institute for High School Physics Teachers

This project provides funds for a three week summer workshop for 20 teachers of physics and physical science, grades 7-12, during the month of July, 1987. The workshop entitled Experimental Foundations of Waves and Vibrations will enable the participating teachers, through the reenactment of historical experiments in the areas of optics and acoustics, to study and understand the role of experimentation in creating scientific knowledge. The teachers will have the opportunity to build and assemble the equipment essential for several of the historical critical experiments in the field. They will be urged to take ideas and resources back to their middle and high school classrooms to enrich their instruction of precollege students and to provide inservice education for their peers. The workshop will be held at the Bakken: Museum and Library of Electricity in Life. The unique facilities of this institution will be available to the participants. The staff for the workshop will be drawn from the Bakken and university scientists. University of Minnesota credit will be given to the participants who successfully complete the workshop. This project is worthy of funding for the following reasons: it utilizes an innovative and creative approach to the enhancement of teacher knowledge in the physical sciences; the teachers will enrich their understanding of the historical development of an area of science as well as increasing their conceptual understanding of the area; the project is a collaborative effort among a museum, university, private sector businesses and school districts; and a resource book of physics experiments will be distributed to physics teachers throughout the state of Minnesota.